CSR-PDOS-Content-Searchable Storage for Feature-Rich Data

Storage capacity and data volume have been doubling every 18 months during the past
two decades. A key challenging issue in building next-generation storage systems is to
manage massive amounts of feature-rich (non-text) data, which has dominated the
increasing volume of digital information. Comparing noisy, feature-rich data requires fast similarity match instead of exact match, and thus exploring such data requires similarity
search instead of exact search. Current file systems are designed for named text files;
they do not have mechanisms to manage feature-rich data. To date, there is no practical
storage system with the ability to do similarity search for noisy, high-dimensional data
and there is no index engine design for efficient similarity search. This research
addresses this problem by studying how to design and implement a content-addressable
and -searchable storage (CASS) system to manage and explore diverse feature-rich data.
The system includes a built-in similarity search engine for general-purpose, noisy, highdimensional
metadata using compact data structures and novel indexing methods. The
research will also develop segmentation methods and feature extraction methods for
audio, image and genomic data, and develop similarity search benchmarks and to
evaluate the CASS system.

This research will advance knowledge and understanding in the area of storage system
designs such as data structures, mechanisms, and APIs for managing, searching and
exploring noisy, high-dimensional feature-rich data. The research will accelerate the
development of next-generation storage systems which will revolutionize how to access,
search, explore and manage massive amounts of feature-rich data in many disciplines.